Intergration of Collaborative Case-Based Learning into Undergraduate Biology Curricula via Molecular Computer Simulations and Nationwide Internet Conferencing

This project addresses the need to engage introductory biology students in critical thinking and problem-solving by making topics in molecular biology more interesting and relevant to all students. Open-ended software simulations integrated with Internet conferencing are facilitating collaborative case-based learning among teams of students at a variety of educational institutions across the nation and the world. Simulation modules share a user-friendly interface and generate realistic output in a format understandable to introductory biology students. The modules work with any DNA, RNA, or protein sequence and also give students the option of using simulated laboratory equipment to generate data. Students analyze pre-designed cases or else develop their own cases using molecular sequences obtained via the Internet. Preservice K-12 science teachers involved in case development and evaluation are gaining experience with research methodology applicable to their own classrooms. Educators can download modules, cases, and resource manuals at no cost from an Internet site at the University of Wisconsin-River Falls. Project results are being widely disseminated at local, regional, and national professional meetings, and also are published annually on the BioQUEST Library CD-ROM. The editorial staff of BioQUEST are assisting in the evaluation and dissemination of project results.